CISE Research Instrumentation: Infrastructure for Cluster and Parallel Systems Research

EIA-9986020
Rudolf Eigenmann
Purdue University

CISE Research Instrumentation: Infrastructure for Cluster and Parallel Systems Research

The School of Electrical and Computer Engineering at Purdue University will acquire four Sun Ultra Enterprise 450 quad-processor servers plus Myrinet interconnections for research in computer and information science and engineering. The equipment will be used for several research projects, including in particular:

Speculative Distributed Shared Memory

Latency-Reducing Compiler Techniques for Distributed Shared Memory,

Studies of large-scale Applications for Symmetric Multiprocessor Clusters

Multiplex: Future Billion-Transistor Microarchitectures

The new equipment will provide a testbed platform for fine-grain software distributed shared memory (DSM) to implement and evaluate speculative coherent DSM architectures and serve as a target for a compiler. In addition, the cluster and individual servers will also be used in single-user mode to perform unperturbed measurements of our large-scale applications and will allow single-user access to individual SMPs without inhibiting long-running multi-user applications.

The servers will provide the required memory and processing power as well as memory bandwidth to perform the memory-and computer-intensive simulations of the Multiplex architecture. The new equipment will deliver high simulation throughput rates by running many simulations concurrently.

The cluster and individual servers will provide the high memory bandwidth, large aggregate memory and processing power required to run detailed, large-scale parallel simulations for the speculative DSM research .